Virginia Alliance for Minority Participation

Virginia Commonwealth University, acting as the lead institution, has joined with Norfolk State University, University of Virginia, Virginia Union University, and J. Sargeant Reynolds Community College, to develop a comprehensive plan which will significantly increase the number and quality of minority, particularly black, scientists and engineers. Building on extensive existing program aimed at increasing the number of blacks entering higher education, the Virginia Alliance considerably enhances these efforts, focuses on recruiting blacks into science and engineering careers, ensures continuity by tracking students beyond the short terms of current projects, and provides a structure that will greatly improve the flow of students among the respective institutions. The Virginia Alliance will marshal all available resources and provide a comprehensive plan so that each black student with potential and interest in science will complete his or her science education and enter the workforce. We will concentrate on undergraduates with the following programs: Undergraduate Research Participation; Student Study Groups; Students Summer Workshops; Curriculum Revision; and Faculty Workshops. Industry and government laboratory representatives will participates with faculty in a number of these activities. Additionally, the program will help students through the important transition points from high school to graduate school by extensive mentoring at all phases.